IRES: Behavioral Ecology and Conservation of African Carnivores

Technical abstract.

IRES funds will permit four advanced undergraduates and four junior graduate students each
year to spend a summer with my team in Kenya, conducting research on African carnivores.
IRES funds permit students to utilize comparative methods, and to undertake projects designed
to acquire new and useful information about the carnivores inhabiting the Mara-Serengeti
ecosystem. IRES funds also permit continuance of a training partnership with three Kenyan
scientists and one young American PhD-level biologist; this team of trainers enables IRES
students to address a broad array of research questions about the behavior, conservation and
physiology of African carnivores, ranging from the evolution of their cognitive abilities to
anthropogenic effects on their stress physiology. Opportunities to participate in this IRES project
are widely advertized, and students are selected based on a set of criteria that include
scholarship, creativity and diversity. Undergraduate participants will be selected from a huge
national pool, and graduate student participants will be selected from a smaller local pool. Pairs
of undergraduate and graduate students will be linked by topical research focus, and they will
work closely with specific Kenyan trainers. All Kenyan trainers are closely affiliated with the
Kenya Wildlife Service (KWS); initial training activities will take place at KWS HQ and at the
KWS Training Institute. IRES students will then be transported to the Masai Mara National
Reserve, in southwestern Kenya, where four of them will be housed at each of our two tented
research camps. Students will spend several weeks developing and executing their field
research projects in the Mara, working closely with Kenyan trainers and Kenyan students. While
in Kenya, IRES students will also receive explicit training in science writing, and present their
work orally at the Carnivore Researchers Conference held each year at KWS HQ. The research
opportunities we offer to students are unparalleled, not only to investigate the biology of several
carnivore species that remain very poorly understood, but also to make important contributions
to behavioral ecology, stress physiology and conservation biology. In addition to providing
support for one graduate student program assistant, IRES funding will profoundly influence the
professional development of eight top American students each year, and offer them
extraordinary opportunities to learn a wide array of field research skills in a spectacular natural
setting. IRES students will receive training in, and conduct research projects investigating, both
the basic and applied biology of African carnivores. The economic well-being of Kenya is
intimately linked with conservation of African carnivores, but our ability to conserve these
animals is often limited by how little we know about their basic biology. Guided by Kenyan
trainers whose professional lives are dedicated to the conservation of African wildlife, IRES
students will gather data to allow important improvements in the management policies used in
Kenya's national parks and reserves. IRES participants will learn a great deal about African life
and culture, and about the complexities associated with carnivore conservation in a developing
nation. This IRES experience will thus contribute significantly to the development of a new
generation of global scientists who are united in their desire to understand and protect the
natural world.

Non-technical abstract.
This international research training program allows advanced undergraduates and junior graduate students to spend extended periods conducting field research on free-living African carnivores in Kenya, building on a strong long-term program of carnivore research in the Masai Mara National Reserve. Several students each year will undertake projects designed to acquire new and useful information about the carnivores inhabiting the Mara-Serengeti ecosystem, and to develop strong, long-lasting professional relationships with Kenyan scientists. A strong team of American and Kenyan trainers will help students address a broad array of research questions about the behavior, conservation and physiology of African carnivores, ranging from the evolution of their cognitive abilities to effects of human activity on their stress physiology. Pairs of undergraduate and graduate students will be linked by topical research focus, and work closely with local experts. While in Kenya, students will receive explicit training in science writing, and present their work at an annual conference on carnivore biology sponsored by the Kenya Wildlife Service. The research opportunities offered to students here are unparalleled, not only to investigate the biology of several carnivore species that remain very poorly understood, but also to make important contributions to behavioral ecology, stress physiology and conservation biology. The knowledge acquired in this research should facilitate conservation of African carnivores, and thus contribute to the economic well-being of Kenya, which is intimately linked with revenues from eco-tourism. This research program will also contribute significantly to the professional development of a new generation of global scientists who are united in their desire to understand and protect the natural world.